Joint Research Between VLSI CAD and MEMS Areas: The Fifth Physical Design Workshop; April 15-17, 1996; Reston, Virginia

The Micro-Electro-Mechanical Systems (MEMS) process technology has matured to the point where it is possible to fabricate a chip with both electrical and mechanical pomponents on it. However, tools and design methodologies are lacking. This worksho is to bring together design researchers from the VLSI CAD and MEMS design fields to discuss and develop ideas for a new design methodology for combined MEMS/VLSI structures.